Mathematical Sciences: Homotopy Theory

Douglas C. Ravenel has been working and will continue to work on algebraic techniques used in topology. In collaboration with various others across the U.S., he has shed light on the Morava K-theory of the classifying space of a finite group, on the homotopy type of MO(8) at the prime 3, and on a new elliptic cohomology theory of apparent interest to physicists (through string theory) and to number theorists. The continuation of this research will also include some machine computation of homotopy groups of spheres.